SBIR Phase II: Novel Separation Technology for Cellulosic Sugar Biorefineries

The broader impact/commercial potential of this Small Business Innovation Research Phase II project will be the development of an alternative, renewable route to fuels and chemicals that is based on biomass that does not compete with the food supply. The process will use underutilized feedstocks such as corn stover and forestry residue to produce fermentable sugars, which can be converted into various raw materials and finished products. The project will add to the scientific understanding of ionic liquid bioprocessing and has the potential to significantly reduce greenhouse gas emissions and stimulate rural job creation.

The technical objective of this Phase II research project is to develop an integrated process for converting lignocellulosic biomass into fermentable sugars. The process uses ionic liquids that dissolve biomass and afford monomeric sugars at high yields via a reaction that is both simple and fast. What is lacking is an affordable method for separating sugars while recycling the ionic liquid. In Phase I the project demonstrated an efficient strategy for sugar recovery. By the first half of Phase II the goal is to integrate sugar recovery into the process front end. Unit operations taking raw biomass to clean sugars and lignin will be performed in batch open loop in order to close mass balances and set a baseline for further process development. Then, the loop will be closed with the addition of ionic liquid cleaning and drying. By the end of this project, the objective is to demonstrate a stable and high-yielding process, including experimentally validated techno-economic projections showing unprecedentedly low capital and operating costs.